High Precision Landau Quantum Oscillation Measurements in the Normal and Mixed States of High-Temperature Superconductors

9501419 Goodrich In this project, measurements of Landau quantum oscillations are made on high temperature superconductors in both the normal and the superconducting mixed states. Both epitaxial films of yttrium barium copper oxide and bismuth strontium rare-earth copper oxide, and bulk single crystals of other superconductors are studied. The physics investigated includes Fermi surface topologies, effective masses, and scattering rates for electrons in the normal state; the interaction of normal electrons with flux vortices in the mixed state; and the behavior of superconducting properties of high temperature superconducting materials in the presence of a strongly Landau- quantized normal-state background. The Fermi surface measurements in the normal state will give values for parameters that are crucial to theories of the mechanism of superconductivity in these materials. The mixed state results will lead to a much improved description of electron-electron and electron-flux vortex interactions. %%% One of the problems limiting the development of materials that exhibit truly high-temperature superconductivity (above the temperature of liquid nitrogen, -196 deg C) is that the basic mechanism responsible for high-temperature superconductivity remains unknown. The present work is directed toward gaining information about this mechanism in a variety of high-temperature superconductors by measuring fundamental properties of the electrons that participate in superconductivity, in both the super-conducting and normal (resistive) condition. By using strong magnetic fields and measuring the quantized magnetism of the electrons, precise values are obtained for parameters that are crucial to theories of superconductivity. This information can then be used to evaluate and test quantitatively these theories. The measurements are made using specialized facilities at the National High Magnetic Field Labo ratory, at Louisiana State University, and at Oak Ridge National Laboratory. ***